CT-ISG: Nexus: A New Operating System for Trusted Computing

Tamper-proof coprocessors for secure computing are poised to become a
standard hardware feature on future computers. Current operating
systems, however, lack the architecture and abstractions required to
support trustworthy computing. A new OS abstraction, called active
attestation, was developed that enables unforgeable, descriptive,
parsimonious certificates about application properties to be
constructed at any time. A new OS mechanism, called secure memory
regions, was implemented that enables applications to protect the
integrity and confidentiality of data on untrusted secondary
storage. Finally, a new OS architecture was implemented that supports
strong isolation without the use of heavyweight virtual machine
technology. Combined, these three features enable a new operating
system that permits a new class of applications that can provide
strong guarantees about their runtime behavior. Such guarantees help
secure systems against malware and viruses, authenticate users on
remote computers, and rule out protocol attacks against distributed
systems.